Poisson Structures and Lie Algebra Cohomology

Abstract Proposal: DMS-9803624 Principal Investigator: Jiang-Hua Lu This project is about applications of Poisson geometry to topology and to Lie theory. Specifically, we propose to study equivariant cohomology of flag manifolds using certain Poisson structures on them. This should also yield results on the Lie algebra cohomology of nilpotent Lie algebras. Partial results have already been reported in a joint paper with Sam Evens in which we give Poisson geometrical interpretation of the Kostant harmonic forms on flag manifolds. Poisson structures arise from physics, the first one being written down by the French mathematician S.D. Poisson in 1809 when studying classical mechanics. Subsequently they were investigated by the Norwegian mathematician S. Lie. Nowadays, it finds applications in physics, control theory, machining automation and robotic manipulation.